Research Initiation: Mitigation Measures for Small Structures on Collapsible Soils

The objective of this work is to evaluate and compare under field conditions, two new methods with conventional ones for stabilizing collapsible soils profiles for small building construction. Small footings constructed on soil plots stabilized by: 1) no treatment; 2) pre-wettings; 3) pre-wetting with 2% sodium silicate solution; 4) excavation and replacement; 5) dynamic compaction on dry soil; and 6) dynamic compaction on pre-wet soil will be compared in their behavior and cost. Prevention of small structures collapse and economical mitigation measures especially in large portions of the U.S., together with the collection of needed data are some of the benefits stemming from this project.